Collaborative Research: Impacts of Local Oceanographic Processes on Adelie Penguin Foraging Ecology Over Palmer Deep

The application of innovative ocean observing and animal telemetry technology over Palmer Deep (Western Antarctic Peninsula; WAP) is leading to new understanding, and also to many new questions related to polar ecosystem processes and their control by bio-physical interactions in the polar environment. This multi-platform field study will investigate the impact of coastal physical processes (e.g. tides, currents, upwelling events, sea-ice) on Adélie penguin foraging ecology in the vicinity of Palmer Deep, off Anvers Island, WAP. Guided by real-time surface convergence and divergences based on remotely sensed surface current maps derived from a coastal network of High Frequency Radars (HFRs), a multidisciplinary research team will adaptively sample the distribution of phytoplankton and zooplankton, which influence Adélie penguin foraging ecology, to understand how local oceanographic processes structure the ecosystem.

Core educational objectives of this proposal are to increase awareness and
understanding of (i) global climate change, (ii) the unique WAP ecosystem, (iii) innovative methods and technologies used by the researchers, and (iv) careers in ocean sciences, through interactive interviews with scientists, students, and technicians, during the field work. These activities will be directed towards instructional programming for K-16 students and their teachers. Researchers and educators will conduct formative and summative evaluation to improve the educational program and measure its impacts respectively.